An Electronic Economics Tutor For Teachers

This three year project will take exemplary curriculum materials in economics and incorporate them into a CD-ROM format. This will provide teachers with an extensive library of economic materials through an interactive software system. The project will be disseminated through the National Council on Economic Education. Following the preparation of the CD-ROM materials teachers from every state will be involved in teacher enhancement programs to implement the curriculum in the schools.